Geometry and Topology of Counting Curves in Projective Manifolds

Abstract

Award: DMS-0072182
Principal Investigator: Kefeng Liu

My project will focus on the understanding of the geometry and
topology of mirror symmetry, in particular the aspect of counting
curves in projective manifolds. More precisely there are three
outstanding and closely related problems that I would like to
work on and hope to solve. The first is to prove the most general
mirror principle for counting rational curves in any projective
manifold and its Calabi-Yau submanifolds; the second is to
understand the geometry and algebra of the local mirror symmetry,
in particular, of the surprising role played by the elliptic
curves appeared in our computation by applying mirror principle;
the third is to develop a mirror principle for counting curves of
higher genus in projective manifolds. I hope to solve these
problems by further extending the techniques we developed to
prove the mirror principle for balloon manifolds. These three
problems are the different aspects of a single problem: to prove
and understand the mirror principle in its most general form.

Superstring theory, one of the most ambitious theory in sciences,
is proposed for the grand unification of the laws of the nature.
Based on this theory, string theorists have made many remarkable
mathematical conjectures. Mirror symmetry is among one of them.
The proofs of these conjectures will not only give beautiful
mathematical results, but also help gain confidence in the
physical theory. The mirror principle we developed has partially
verified some of these conjectures. It has many interesting
mathematical consequences and is remarkably compatible with the
physical theory.